Support for U.S. High Energy Physicists to Attend 42nd Rencontres de Moriond Conferences, La Thuile, March 10-27, 2007

The Moriond Conferences are organized by leaders in the field of high-energy physics, and the subjects chosen are topical and broad. The topics of the two sequential 42nd Rencontres de Moriond are: (1) Electroweak Interactions and Unified Theories, and (2) QCD and High Energy Hadronic Interactions. The Conferences will be held in La Thuile, Aosta Valley, Italy, on March 10-17, 2007 and March 17-24, 2007 respectively. Currently, U.S. Particle Physics is in a leading position in the world, with the majority of new and important results in the field coming from BaBar, CDF, CLEO-c, D0, PHENIX, STAR, and several other U.S. experiments, as well as from the associated theoretical research. Partial support for travel and registration will be provided through this program, to allow young high energy physicists from the US to participate.